Elementary Particle Theory

This 6 month supplement to NSF Grant No. INT-8509268 between S. Fajfer, University of Sarajevo and Robert Oakes, Northwestern University was approved by the U.S.-Yugoslavia Joint Board for Scientific and Technological Cooperation in May 1988. Supplemental support is recommended to complete the joint research project on elementary particle theory.